Novel Properties of Liquid Crystal/Coil Diblock Copolymers via Tandem Interactions

9705271 Thomas Liquid crystals hold great promise as materials in optical, barrier and structural applications. In this GOALI/Group Award, supported jointly by DMR and the MPS Office of Multidisciplinary Activities, the PIs will exploit the unique tandem interplay of domain formation and alignment in the block copolymer structure and self-organization of the mesophase by use of liquid crystal block-coil block copolymers and homopolymers in special applied processing fields. From their prior work, they have identified two general applications which will act as vehicles to exploit and test fundamental understanding of these tandem interactions: (1) to develop the knowledge and engineering expertise to produce flexible plastic liquid crystalline displays and switches and (2) to create new thermoplastic liquid crystalline polymer materials with layered structures for transparent, highly impermeable barrier film applications. To accomplish these goals they plan to exploit the interactions of microphase separation, liquid crystallinity and applied fields. A 3 year program is envisioned, with a team comprised of Superex Inc. and each university PI with 1 graduate student and 2 undergraduate researchers. Complimentary areas of expertise of the PIs will ensure a through approach to the investigation: Thomas, characterization and properties; Ober, synthesis and characterization; Muthukumar, theory and modeling. %%% Apart from the specific scientific and engineering objectives of this program, the PIs plan to use this inter- university focused research group collaboration to examine several new approaches to graduate and undergraduate education of the students connected with this program. Both graduate and undergraduate students will gain research experience outside the normal university training: graduate students will mentor undergraduates, and both groups will learn entrepreneurial skills through exchanges with our industrial partner and by taking business cou rses. Communication skills will be improved through joint seminars. Students from all three university groups will participate in special retreat-style meetings, traveling to a site chosen by the host univeristy. The location of all three universities in the Northeast makes such exchanges and visits very feasible. They will also encourage both the graduate and undergraduate students to carry out exchanges with other university teams. Each institution and research group carries with it a unique style and tradition that influences the way research is approached. By experiencing these different cultures, students at both levels (graduate and undergraduate) will benefit. The education approaches found to be most successful will be expanded at MIT, UMass and Cornell into other undergraduate programs. ***